CAREER: Career Development in Structural Seismology of Earth's Interior

CAREER
Garnero
0135119

This proposal describes a long-term research directive for studying
Earth's deep interior and related activities in science education in
seismology and geophysics. An undergraduate and graduate course in
seismology will be developed in Arizona State University's Department
of Geological Sciences, a department that has experienced recent
expansion in geophysics/seismology. Many topics in seismology are
beyond the scope of an undergraduate course that uses traditional
lecturing approaches. The new courses will utilize more three
dimensional visualizations using computer imaging and animation,
along with more interactive learning methods and analogies. Both the
undergraduate and graduate course will utilize already in-house
research tools to study aspects of seismic data from recent and past
relevant earthquakes. Emphasis on individual student and group
discovery will be emphasized in both classes. Research activities for
the proposed period focus on seismic studies of Earth's interior,
with emphasis on the deep mantle. Three main areas of focus are: (1)
determination of seismic heterogeneity, which is used to infer
thermal and/or chemical heterogeneity; (2) detection and
characterization of seismic wave speed anisotropy, which is related
to rheology, dynamics, and flow in the mantle; and (3) detection and
mapping of boundary layers and/or discontinuities in seismic
properties, which may relate to chemical or phase boundaries in the
Earth. The proposed work utilizes travel time and waveform analyses
of relevant seismic waves and tomographic analyses, and will utilize
two state of the art computer labs in the department, which are both
outfitted with modern PC and UNIX computers. Research efforts
characterizing heterogeneity, anisotropy, and boundary layering will
include 2- and 3-D travel time and waveform analysis and propagation
tools, an important next step in deep Earth seismology.
--